Nuclear Reaction Theory

Reactions allow for active exploration of nuclear properties,

they play an important role in the evolution of the Universe and,

further, they yield access to unique physical phenomena.

Much of current research emphasis is on reactions with unstable nuclei,

nuclei with a large neutron or proton excess. This project aims at

understanding both central and peripheral reactions involving

such exotic nuclei.

Central reactions reveal the dependence of bulk nuclear properties

on the neutron-proton content. Different peripheral reactions

under scrutiny are doorways to various astrophysical

processes as well as to the structure of

the exotic nuclei of interest.

Novel methods both for central and peripheral

reactions will be advanced, establishing, in particular,

links to mesoscopic phenomena elsewhere. Sensitivity to specific

reactions will be explored in supernova simulations.

This proposal will make an important contribution to the theoretical

foundations of existing RNB experimental programs (such as the NSCL),

as well as the studies planned for the new generation laboratories.

In adition, the diverse nature of the project will allow to effectively

engage the students at an early stage with nuclear research.